The Role of Polymeric Adhesive Films in Corrosion Processes at the Solid/Solution Interface: A Surface Plasmon Resonance Study

This Faculty Early Career Development (CAREER) project, supported in the Analytical and Surface Chemistry Program, addresses the role of adhesive exopolymer films in biocorrosion processes at metal/solution interfaces. During the tenure of this three-year continuing grant, Professor Georgiadis and her students at the George Washington University will apply a suite of surface plasmon assisted spectroscopies and complementary optical spectroscopic and electrochemical techniques to the characterization of the adsorption and surface reactions of model species relevant to the initial stages of exopolymer mediated corrosion of metals, particularly copper, under ecologically relevant conditions. This research is designed to address three broad goals: (1) to understand the physics and chemistry of the metal/solution interface in the initial stages of biocorrosion; (2) to describe the mechanisms of the surface corrosion reactions; and (3) to explore the role of surface energy, surface composition, and surface roughness on exopolymer adsorption, exopolymer adhesion, and metal corrosion rate. Also during this grant period, Professor Georgiadis will implement an interdisciplinary educational development plan that includes relevant new and revised course offerings, an increased role for research in undergraduate education, and a focus on increased broad awareness of the central importance of chemistry and chemical concepts. An understanding of the molecular basis of biocorrosion of metals is critical to technologically important areas such as materials, manufacturing, and civil infrastructure. In this CAREER research project, surface plasmon assisted spectroscopies and complementary experimental techniques will be used to gain molecular level insights into this scientifically complex and economically important area. The education development aspects of this CAREER project should enrich and broaden significantly the chemistry educational experience of George Washington Un iversity undergraduate and graduate students.